Genetics of Rabbit Latent Ig Allotype Expression

Rabbit immunoglobulin allotypes are presumed to be inherited via codominant allelic segregation. However, latent or non-allelic gene activation has been documented for the Ig heavy (H) chain and kappa-1 light (L) chain loci. This laboratory has recently, for the first time, verified the existence of latent kappa-1 light chain mRNA. Latent b5 kappa-1 mRNA was induced in two b4,4 homozygous rabbits following infection with Trypanosoma brucei. In addition, latent b6 cDNA sequences have recently been cloned from an heterozygous b4, b9 rabbit. Employing the polymerase chain reaction and molecular cloning techniques, it has been established that latent b5 and b6 are identical to their nominal b5 and b6 counterparts. The long term goal of this laboratory is to investigate the regulation of these allelic and non-allelic genes. The following studies will be pursued. 1) Using the latent b5 C kappa 1 gene as a model, genomic sequences encoding latent b5 will be investigated employing lymphoid tissue preparations as well as FACS-sorted B cells expressing latent b5. Linkage of the latent b5 to the nominal b4 gene will be explored using in situ hybridization, chromosome mapping, and pulsed field electrophoresis. 2) The functional rearrangement of the latent b5 and b6 genes with V-kappa and J-kappa gene segments will be investigated. 3) It will be determined whether latent b9 kappa-1 sequences exist, and if so, functional recombination with V-kappa and J-kappa regions will be probed. 4) Since rabbits have been found also to be expressing latent a2 and e14 following T.brucei infection, mRNA encoding e14 will be identified by molecular cloning, and functional recombination with V-H, D-H, and J-H gene elements for the chain will be investigated. These studies focused on the expression and genomic organization of three separate latent allotype loci (kappa-1, VHa, CH-gamma) should unequivocally establish their existence at the DNA level, and begin to shed light on their function. The structure of immunoglobulin molecules is determined genetically, i.e., by the structure of the immunoglobulin genes which encode them. The mechanisms by which immunoglobulin genes undergo rearrangements and small changes in the structure of their antigen combining sites is the subject of much current research. Apart from their antigen combining sites, however, immunoglobulin molecules have other distinct stuctural features which vary from one individual to another and are characteristic for the immunoglobulins of a particular individual. Allotypes are examples of such structural features. Since allotypes correspond to segments of immunoglobulin molecules, they would be expected to be inherited by the same rules as other genes. It has been known for some time that in rabbits genetically unexpected allotypes are sometimes expressed. This seems contrary to established principles of inheritance. The proposed research is a continuation of a project directed toward understanding the molecular basis for this long-standing genetic enigma. The results may demonstrate important exceptions to our current ideas about immunoglobulin gene regulation. In any case, they will contribute to our overall understanding of immunoglobulin gene expression.